UIG - Partnership for Quality Engineering: Computer Communication with Remote Project Clients

Engineering Practice Introducing Course Sequence, an Interdisciplinary Program at the university, uses bona-fide projects from industry or government agencies to teach students problem-solving skills. The students work in teams on these open-ended problems; the industrial engineer is their client; the professors are their mentors. Funds are supplied to enable experimentation with using projects from remote industrial or government engineers--clients who because of distance cannot meet face-to-face with the students. The university uses computer-telephone technology for communciations between these remote clients and their project teams. If successful, the experiment will expand the project client pool and it will get the student more deeply into computer use. The experiment will use the Telewriter II-PC System developed by Optel Communications, Inc., and the AT&T Alliance conferencing system. This system allows interactive computer use between stations along with voice-over conferencing.